An Internet Node to Foster International Communication and Collaboration in Telemedicine

9510290 Hayes This project connects the Telemedicine Research Center to the Internet over a 56 kbps line. Faculty and students at the school benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for one year.